Application of Airborne Passive Microwave Measurements for INDOEX

This project supports the Indian Ocean Experiment (INDOEX) to be conducted during the period February-March 1999. The principal goal of INDOEX is to measure the direct and indirect effects of aerosol on the tropospheric radiative energy budget. To support INDOEX, we propose to deploy the Advanced Microwave Imaging Radiometer (AIMR) on the NCAR C-130 research aircraft during its flights for INDOEX. We plan to analyze the AIMR data for cloud liquid water path (vertically integrated amount of cloud liquid water) determined over the swath of the radiometer. This dataset can also be used to determine rainfall rate and to estimate integrated water vapor path (precipitable water). This project supports INDOEX primary scientific objectives by providing information on gradients in the liquid water path of low-level clouds, to aid in the interpretation of the indirect effect of aerosols on the radiative fluxes.